A Qualitative Study of Time-Lagged Recurrent Networks

ECS-9732785
Liu
Time-Lagged Recurrent Networks (TLRN)are known to be more powerful than feedforward multilayer neural networks and in nonlinear systems identification and control. This project will investigate several fundamentally important theoretical and practical questions concerning TLRN's in two areas:

Structural adaptivity and robustness analysis: For nonlinear function
approximation using neural networks, the behavior of time-lagged
recurrent networks will be studied in comparison to feedforward neural networks.
It will be shown that, due to the existence of recurrencies in the network,
time-lagged recurrent networks will exhibit behavior equivalent to
multilayer feedforward neural networks with time-varying parameters. It is
expected that a multilayer feedforward neural network with time-varying
paxameters will exhibit adaptive behavior; and the study will show that time-lagged recurrent networks with fixed parameters will generally exhibit adaptive
behavior. A thorough study of how time-lagged recurrent networks will
perform under parameter perturbations will also be conducted. Results
will be given as bounds for permissible parameter perturbations which
guarantee to retain the desired performance of the network.

Training based on energy function approach: Stability of recurrent
Neural networks which can be translated into convergent behavior and bounded
signals and parameters in the network is of fundamental interest. The
stability properties of tiine-lagged recurrent networks will be studied
using the Lyapunov's second method. In applying the Lyapunov second method, one
needs to construct a Lyapunov function (or energy function). Stability is
guaranteed by the fart that the Lyapunov function is positive definite and
is (monotonically) decreasing over time. This stability analysis result will
shed new lights on the training of neural networks for systems identification,
which will lead to training algorithms with guaranteed convergence to the global
minimum or to a solution.